Finite Element Approximations of Bending Actuated Devices

The ability to generate complex deformations from relatively small energies has tremendous applications in micro-engineering and biomedical science. This research focuses on developing and implementing mathematical algorithms able to predict and optimize the deformation of elastic films, chosen for their potential in the production of robust and light-weight micro-scale devices. The deformations considered are triggered by exposing to external stimuli either polymers with different expansion characteristics or manufactured gels with residual stresses. Devices based on these technologies are, for instance, employed as drug delivery vesicles, cell encapsulation devices, sensors, bio-muscles and as proxies for tissue growth. In addition to these applications in biomedical science, the development of autonomous foldable structures such as self-deployable sun sails in spacecraft or deployable aircrafts, photovoltaic devices, actuators, micromotors, microgrippers, microvalves, microswimmers are very popular interests in the engineering community this research is likely to have impact on.

The proposed study focuses on thin devices where bending is the principal mechanism for, possibly large, deformations. The mathematical models are derived as the two dimensional limit of thin three dimensional hyper-elastic solids. They are characterized by energy densities dominated by bending, expressed geometrically as the film's second fundamental form. In addition to the difficulties inherent in the non-divergence form of this fourth order system, fully non-linear geometrical constraints must be taken into account in the context of large deformations. The aim of this research is to derive mathematical models when not available for the targeted application, and to design, analyze and implement finite element based algorithms for their approximations. The entire process from the mathematical analysis to the actual highly parallel implementation of finite element algorithms is covered. Hence, analytical tools borrowed from differential geometry and calculus of variation are blended with numerical analysis and delicate computational efforts to achieve efficient and practical algorithms. The ability to generate complex deformations from relatively small energies has tremendous application in micro-engineering and biomedical science. The algorithms resulting from the proposed research - and in particular their relatively effortless implementations - are likely to have impact in these areas. To mention a few applications, devices based on bilayers of polymers or prestrained films are employed as drug delivery vesicles, cell encapsulation devices, sensors, bio-muscles and as proxies for tissue growth. In addition to these applications in biomedical science, the development of autonomous foldable structures such as self-deployable sun sails in spacecraft or deployable aircrafts, photovoltaic devices, engineered scaffolds, actuators, micromotors, microgrippers, microvalves, microswimmers are very popular research interests in the engineering community.